RIMI: Multinuclear Magnetic Resonance Spectroscopy

9550560 Fratiello The project will involve the application of multinuclear magnectic resonance (NMR) spectroscopy to two research programs. The instrument to be utilized is a Bruker AM-400 MHz superconducting Fouier transform NMR spectrometer, capable of high resolution and sensitivity for studying low abundance nuclei, and equipped with accessories for the variable temperature, two dimensional, and multinuclear experiments to be emphasized in these programs. The research program titles and the nuclei to be studied are "Lanthanide lon Complexation" (1H, 12C, 15N, 27Al, 31Cl, 8lBr, 89Y, 113Cd, 127l, 139La) and "Polyborane/Carbon Cluster Chemistry" (lH, llB, 13C, 19F, 31P). The project will involve six to twelve students from minority groups underrepresented in the sciences, specifically, African Americans, Hispanics, and Native Americans, with the objective of preparing them for graduate school and careers in science. Activities will include research training, as well as seminars, and academic and career counseling. ***